SBIR Phase I: Ultrasonic Sensor Systems for Object Range-Imaging Feedback Control of Industrial Robot Manipulators

Advantages of ultrasonic sensors are low cost and high precision of short range measurements. Effective use of ultrasonic sensor systems will allow robots to handle imprecisely positioned parts, weld, inspect, and perform factory assembly tasks. Research is underway to build an array of ultrasonic transducers, mount it on the wrist of a robot, and integrate it with the manipulator. The acoustic beams will be electronically steered and focused. The electronic beam focusing will improve parallel processing architecture is proposed to process the three-dimensional images. Computer integration between the sensor acquired data and the manipulator joints control includes a motion-patch planning block and a coordinate transformation block. This technical approach allows the sensor and the manipulator to carry out extremely dexterous work which demands precise position and motion path control of the robot hand and/or robot hand-held tools with respect to work piece.